Mathematical Sciences: Algebraic and Geometric Topology

9400805 Milgram Milgram will work mainly in areas related to the geometry of moduli spaces of Yang-Mills instantons on 4-manifolds and monopoles on 3-manifolds. He will focus on the explicit relations between instantons on ruled surfaces (which are now reasonably well understood) and instantons on general algebraic surfaces. Cohen will emphasize Floer homology and a conjectured Floer homotopy theory. S. Kerckhoff will primarily study the deformation spaces of hyperbolic structures on 3-manifolds, with particular attention to problems of degeneration at the boundaries. Recent interactions between mathematics and physics have brought new ideas and problems into mathematics related in part to the physicists' desire better to understand quantum field theory. Among the mathematical results of this interaction have been extensive new information about the geometry of 3- and 4-dimensional spaces, including counterexamples to basic conjectures and new structure results. The major focus of this project is to apply much more advanced results from deep, well-developed areas of mathematics, such as algebraic topology and homotopy theory, to these new ideas and problems, as well as to related questions. ***